Photo-Controlled Polymerization from Bundlemer Surfaces for Hybrid Nanomaterials

Dr. Christopher Kloxin of the University of Delaware, with co-investigator Dr. Darrin Pochan, will study a new way to build very small, highly organized materials by combining protein-like building blocks with synthetic polymers. The work will use bundlemers, a new class of innovative materials shaped like tiny nanocylinders, as molecular scaffolds that could guide where polymer chains grow. By using these nanocylinders as templates, the research would advance a molecular-level approach to advanced manufacturing, in which complex materials could be built more predictably, with less trial-and-error, and with new combinations of structure and function. The project will also explore light-controlled, water-based chemical processes that could help make future material synthesis more precise and efficient. In the long term, this knowledge could benefit technologies important to society, including high-performance materials, energy-related materials, healthcare technologies, and other products that require precise control over molecular structure. The project will train graduate and undergraduate students in chemistry, materials science, data analysis, and scientific communication. Research results and methods will be shared through publications and public data repositories, and outreach activities will introduce high school students to self-assembly, biomaterials, and polymer growth from protein-like materials.

The research plan will determine how nanoscale structure and local chemical environment control polymer growth from bundlemer surfaces. The first objective will quantify how initiator position, linker chemistry, initiator density, and bundlemer surface charge affect initiation efficiency, copper-catalyst behavior, and polymerization control during surface-initiated photoinduced atom transfer radical polymerization. The second objective will determine how growing polymer chains interact on the confined bundlemer surface by examining polymer crowding, spacing between neighboring grafts, and the influence of a pre-existing polymer chain on initiation at an adjacent site. These experiments will connect polymer molecular weight, dispersity, conversion, and solution structure to the nanoscale placement of reactive sites. The third objective will use symmetry-broken parallel bundlemers to create directionally encoded peptide-polymer conjugates, including miktoarm Janus bundlemers and axially segmented copolymers with distinct polymer domains at defined locations. Characterization by size-exclusion chromatography with multiangle light scattering, nuclear magnetic resonance spectroscopy, circular dichroism spectroscopy, static and dynamic light scattering, and electron microscopy will establish how molecular design governs controlled polymer growth. The results will provide design rules for polymerization from biomolecular scaffolds and enable new anisotropic hybrid nanomaterials with programmed composition and function.